Advanced Computational Laboratory in Chemical Engineering

Recognizing the ever growing importance of computation and computer aids in engineering practice, Carnegie Mellon University's Department of Chemical Engineering is establishing an advanced computational laboratory for undergraduate education. The laboratory is used as an instructional aid in the teaching of all of the basic courses, such as fluid mechanics, reactor design, and chemistry, through the graphics capability of each student station and one large common viewscreen in the front of the laboratory. Undergraduates are exposed to the computational laboratory from the freshman through the senior years so as to continually develop their computer skills and become comfortable with computers for a variety of tasks including word processing, numerical analysis, spreadsheeting, and team (parallel) computation. The uniqueness of this laboratory is the integration of computer methodologies into the learning process of students over their entire educational experience, so that each student will appreciate the range of computation from personal computers to workstation up to the supercomputer level, and know how and when to use each level.